Year of Algebra at the University of Florida

The Year of Algebra 2002- 2003 at the University of Florida
is highlighted by the celebration of the 70th birthday of John
G. Thompson. The general theme of the Year of Algebra is provided
by the wider context of Thompson's monumental contributions: the
beauty and power of group theory, and how it applies to problems of
arithmetic via the basic principle of Galois. The Year of Algebra
features a conference in Galois Theory (Nov. 3--9, 2002), a conference
in Group Theory (March 9--16, 2003) and a workshop on Computational
Aspects of Algebraic Curves, and Cryptography (March 9--15, 2003).
The Galois conference centers around the Inverse Problem of Galois
Theory, one of the major open problems of mathematics. The conference
on Finite Group Theory has speakers involved in the completion/
revision of the Classification, as well as speakers in Representation
Theory, and applications of Finite Groups to Finite Geometries and
other areas. The workshop deals with interactions between modern
computational tools/questions and the theory of algebraic curves,
emphasizing the application to public key cryptography. It has a
strong instructional component (mini-courses).

Group Theory is the abstract study of symmetry patterns (of any
object), and Galois Theory provides tools for applying Group Theory
to algebra and arithmetic. Recent applications to data security
(public key cryptography) are the topic of the workshop. Galois
Theory and Group Theory have further applications to physics,
chemistry and coding theory. The Year of Algebra provides an
opportunity for young mathematicians, women and minorities to
learn the latest advances. It was John G. Thompson who shaped
finite group theory like no-one else, leading the way towards a
major milestone of 20th century mathematics, the classification
of finite simple groups. After the classification, it was again
J. Thompson who led the way in exploring its implications for
Galois Theory. For these contributions, Thompson has recently
been awarded the National Medal of Science. He also won the Fields
Medal, the highest honor in mathematics. For the Year of Algebra,
University of Florida Graduate Research Professor John G. Thompson
acts as an advisor. His powerful ideas continue to inspire the young.
We want to use this opportunity in a special effort to integrate
research and education during the Year of Algebra. While the two
conferences emphasize latest advances in research, the workshop
has a strong instructional component.